Northwest Regional Center for Sustainable Resources Project

9453262 Cudmore The Northwest Regional Center for Sustainable Resources (NWRCSR) project is a collaborative effort of high schools, community colleges, higher education institutions, private industry, and government in Oregon, Washington, and Northern California to create a comprehensive center of innovative educational programs which can support the efforts of government agencies, industry, and business to restore and preserve the environment. Students who complete one of the associate degree programs will be ready to enter the workforce as advanced technicians in a variety of science-based occupations which target both sustaining and restoring natural resources, or they can continue for advanced degrees. Associate degree programs in diverse natural resource/environmental fields are being created or are undergoing major curricular revisions to focus on aquatic/terrestrial ecosystems. Secondary schools and colleges and universities complete the conduit that is providing a seamless delivery of basic scientific content, principles, and processes culminating with hands-on applications. Internships in industries and agencies are providing the fertile ground to produce a workforce capable of contributing to a unified approach to restoration, environmental clean-up, watershed enhancement, sustainable forestry and fisheries, and habitat restoration. Innovative programs in biotechnology and energy management are being developed in a region where industry itself is driving the programs. The Center programs provide innovative, transportable models for developing problem solving, communication, and collaborative skills that match the requirements of an advanced scientific/technologic workforce necessary to transform the workplace to high performance. The NWRCSR is providing a model for collaborative efforts to address important regional and national needs. ***